Exploiting Special Structures in High-Dimensional Data Classification

ABSTRACT

Proposed research develops new practical methodology and algorithms as
well as theoretical results for high-dimensional data classification. The
main issue is that when the number of measured variables exceeds by far
the number of observations, estimating the full covariance matrix
accurately is impossible. The investigator has previously shown that
ignoring the dependence completely in such a situation is a better option,
but it means discarding a lot of information. This problem will be
resolved by developing new sparse covariance estimators which will only
retain important dependence information, and studying their behavior
theoretically in the context of discriminant analysis. New practical,
computationally efficient algorithms for computing these estimators from
data will be developed on the basis of clustering and graph partitioning
methods and compared to existing regularization techniques. Theoretically,
asymptotically optimal or near optimal classification performance is
expected to be demonstrated. Another way to reduce the size of the
problem and get to the underlying structure is to reduce the data
dimension using recently developed nonlinear manifold projection methods,
which aim to discover a nonlinear low-dimensional embedding preserving
most of the information contained in the data. Using these methods
requires estimating intrinsic data dimension and neighborhood scale on a
manifold, and new rigorous estimators for both are proposed, along with an
analysis of their statistical properties. Careful estimation of these two
parameters will improve on the current mostly heuristic methods used in
machine learning and increase applicability of manifold projection methods
for high-dimensional data classification.

This proposal addresses the new challenges posed by the massive amounts of
data collected in the modern world by developing new theoretical and
practical tools for dealing with high-dimensional data, particularly with
the situation when the number of measurements taken for one observation is
large relative to the number of observations. New sparse estimators of
dependence structure in such data are developed, which only contain the
information relevant for data classification. The new estimators can also
be used in any problem where large covariance matrices need to be
estimated from limited amount of data, and hence will have an impact on a
wide range of modern applications, such as classification and analysis of
gene expression data, analysis of complex chemical and physical
experiments, remote sensing, and medical imaging, among others.